A National Neural Circuitry Database (NCDB): Development ofa Shared Information Resource for Basic and Clinical Neuroscience

This is not a research project but one which attempts to arrive at a consensus among experts regarding the requirements of the scientific community for, and implementation of a National Neural Circuitry Database (NCDB). The major objectives of this project are to: (1) Formulate a position on the requirements for and appropriateness of establishing a NCDB; (2) Define the scope and elements of data that would constitute the NCDB; (3) Define the precise format for representation of data. This goal may allow for the linkage of spatial and anatomical data with text and tabular alphanumeric data in a way that makes it possible to move easily between graphical and alphanumeric data and information; (4) Describe a prototypic or optional computer system that either currently exists, or is under development, which can be used for data storage and which will allow for optimal data communications and sharing among various investigators; (5) Describe 1.2 currently existing national database systems that illustrate various configurations for data storage, representation, retrieval and sharing. Within this description include any documented experiences that these systems can provide for the successful establishment of the database and potential pitfalls, if available; (6) Outline how the NCDB can be best organized in structure so that it can be efficiently established and maximally organized for use by the neuroscience research community clinical investigators, and educators. This should include an ideal ordering of tasks and goals with both fiscal and temporal estimates of need; and (7) Based on what is learned from fulfilling these objectives, make recommendations on the future directions and policy in program development for the NIMH, NIDA and NSF with respect to establishment of a NCDB.